Standard Star Optical CCD Photometry

9313868 Landolt This grant will support the continuation of a long term program to establish standard stars for broad band photometry. These stars are needed for the calibration of stellar photometry and are used by many investigators. During the duration of the present grant the standard star sequences will be extended to fainter stars and as many stars with extreme colors will be included as possible. ***